Workshops on Enhancing the Impact of University Research on Critical Technologies

9321531 Eisenberger Princeton University and the University of California at Santa Barbara, jointly will hold a series of six workshops in which participants from universities, government and industry look strategically at selected areas of technological and societal importance. The goals of these meetings will be, first, to identify important areas in which progress can be made, then to identify fundamental scientific problems that need to be solved in order to make progress in those areas, and finally to identify resources that will be needed to carry out relevant research. In short, the workshops will identify explicitly those places where fundamental research at universities can make significant impacts on critical technologies. They will also provide guidance both for academic scientists and engineers and for the National Science Foundation. ***